Support to Intergovernmental Oceanographic Commission of UNESCO for Global Ocean Observing System Activities

The Intergovernmental Oceanographic Commission (IOC) of UNESCO coordinates and facilitates
ocean research among governments. A total of 129 countries comprise the membership; the
United States is a key participant and strong supporter of IOC activities. The IOC develops and promotes international research to improve global undestanding of ocean processes and their relationship to the sustainable development and stewardship of ocean resoruces. This project consitutes the NSFportion of support to the Ocean Science Section of the IOC, including development of a new program on Multidisciplinary Science and Natural Resources and an international initiative to examine critical issues of land-atmosphere-ocean biogeochemistry.